Coordination and Technical Assistance for "Opportunities in Support of Multidisciplinary Research," a Component of the US HPCC Program (CPO-9596088)

9521393 Linsky Contractor support of two cross-directorate panel meetings.